The First Mummy Range Workshop in Electrical Impedance Tomography

Electrical Impedance Tomography (EIT) is a medical imaging technique in which
low levels of current are applied through electrodes on the surface of the
body, the resulting voltage is measured on the electrodes, and an inverse
problem is solved computationally to determine the conductivity distribution in
the interior. In EIT the imaged region is often a cross-section of the body, such as
a patient's chest. The tissues and organs in the body have different
conductivities, a fact which enables one to form an image from the
conductivity distribution. There is an essential interplay in EIT between
engineering and mathematics. The design of a fast and accurate EIT system
poses many engineering challenges. Mathematics has helped solve design issues
such as what are the optimal current patterns to apply, what number and size of
electrodes should be used, and what measurement precision is need to distinguish
inhomogeneities. In order to image human processes in real time, the
reconstruction algorithms that solve the inverse problem must be very efficient.
Furthermore, for certain applications, such as distinguishing a breast tumor
from a cyst, the reconstructed conductivity values must be accurate. The design
of reconstruction algorithms draws on many areas of mathematics including
partial differential equations, analysis and complex variables,
mathematical modeling, numerical analysis, and scientific computation.

The goal of the Mummy Range Workshop in Electrical Impedance Tomography is to
bring together mathematicians, engineers, and physicians working in EIT to
increase the communication between the groups and address current problems in
design issues, applications, and reconstruction algorithms. To the organizers'
knowledge, this is the first conference in EIT specifically designed to bring
together these groups. The workshop will be held at the Pingree Park Campus of
Colorado State University, a conference center located in the Mummy Range of
the Rocky Mountains. By bringing these groups together, we hope to expand the
clinical applications of EIT and push the technology forward in terms of system
design and reconstruction algorithms. Several important existing clinical
applications of EIT include monitoring heart and lung function, diagnosis of
pulmonary embolis (a blood clot in the lung), diagnosis of pulmonary edema,
monitoring for internal bleeding, and the early detection of breast cancer.
Groups attending the workshop will be presenting work on these applications
and others such as imaging changes in the brain during epilepsy and stroke
and monitoring of cancer tissue during hyperthermia by impedance spectroscopy.
Several groups are presenting work on the design of new systems for specific
applications such as breast cancer detection, and novel reconstruction algorithms
will be presented. The workshop website is http://www.eitworkshop.org.